Analysis of Decametric Radio Observatories of the Collision of Comet S-L9 with Jupiter

95-26300 Reyes As part of NSF-funded follow-up studies of the Comet Shoemaker-Levy 9 impact on Jupiter in July 1994, Dr. Reyes will reduce, analyze, and interpret radio observations carried out before, during, and after the event. Most of the observations were carried out with the University of Florida Radio Observatory, the University of Chile Radio Observatory, and Caltech's Owens Valley Radio Observatory. These data will be complemented with data gathered during the week of the collision at radio observatories in Japan, Tasmania, and Australia. The objectives are to investigate possible effects of the collision of the comet fragments on the mean peak flux densities of the normal Jovian radio emission, and to determine the locations of sources of mechanisms for emission of radio bursts. Finally, Dr. Reyes will compile and publish a catalog of the observations. **